Developing the Science of Science Communication in Early Career Scientists: Incorporating Lessons Learned - February 2020 in San Diego, CA

A workshop for students and early career scientists will be held in conjunction with the bi-annual conference known as the Ocean Sciences Meeting 2020, which is co-sponsored by the Association of the Sciences of Limnology and Oceanography (ASLO), the American Geophysical Union (AGU and The Oceanography Society (TOS) and which will be held in February 2020 in San Diego, CA. The one-day workshop is designed to train students and early career scientists in the oral and visual communication skills needed to effectively communicate with a variety of audiences. Workshop organization and evaluation will be managed by Drs. Schiebel and Stone, from Suffolk University. The main speakers will be Dr. Jessamyn A. Fairfield, a physicist and Lecturer, National University of Ireland Galway's School of Physics and Dr. Echo A. Rivera, owner of Creative Research Communications, LLC. Both speakers are highly experienced and well qualified, with expertise in training scientists to give effective presentations to a variety of audiences. Evaluation of the workshop will be conducted by Dr. Rebecca Stone, Assistant Professor of Sociology, Suffolk University.

This workshop will offer a group of approximately forty students and early career scientists an opportunity to improve their presentation skills. The plan for the workshop is solid, and the event is likely to be well-attended and highly successful because it will be held in conjunction with a large bi-annual conference. The broader impacts of the workshop include training and professional development for a diverse group of participants. In addition to the training provided to participants, this award will support two early career scientists who will gain experience in workshop organization, grant management and scientific leadership.